Equipment for Polarized Beam Production for the IUCF Cooler Injector

A new source of polarized light ions, including protons and deuterons, will be produced for use with the Indiana University Cyclotron Facility (IUCF). IUCF is a national user facility for nuclear physics, with particular emphasis on studies of the meson exchange character of the nucleon- nucleon force. IUCF serves a user community numbering in the hundreds. The new source will increase the intensity of polarized beams available using the IUCF Cooler ring accelerator (a 500 MeV synchrotron) twenty-fold, opening up new and more stringent tests of our understanding of the nucleon-nucleon potential. The IUCF research program also includes tests of theories of the strong interaction relating to synthesis of the structure and dynamics of complex nuclei from the fundamental nucleon-nucleon potential. These topics are of high priority within U.S. nuclear science, as established by the joint NSF/DOE Nuclear Science Advisory Committee in its 1996 Long Range Plan. Education of students and postdocs is a strong component of the IUCF experimental program.